Vesicle-Microtubule Interaction and Fast Axonal Transport

The work focuses on the characterization of important motility related proteins associated with the surface of membrane bound vesicles and/or with the subunit lattice of microtubules. The subcellular distribution of these proteins, called kinesin and vesikin, will be determined at the light and electron microscopic levels, and the identity of proteins that associate specifically with vesikin or kinesin will be determined by affinity chromatography. Both of these approaches will utilize standard biochemical and immunological techniques. In a comparative approach, mitochondria will be analyzed to determine what characteristics of that organelle allow it to move bidirectionally in axons. This is important because up to now motility studies have focused on axoplasmic vesicles that move unidirectionally in axons. Finally, cDNA clones of kinesin and vesikin will be selected and studied. The significance of these experiments is that they will increase our understanding of the motor molecules involved in the important cell biological phenomena of intracellular particle motility in general and fast axonal transport in particular.